Oceanographic Instrumentation

Rabalais
This award to Louisiana Universities Marine Consortium (LUMCON) provides support for the acquisition of two acoustic current profilers for R/V Pelican, a research vessel operated by LUMCON as part of the University-National Oceanographic Laboratory System (UNOLS). These current profilers, mounted on the vessel's hull and integrated with the vessel's existing attitude sensors and data acquisition system, will provide accurate current data along the track of the vessel in shallower water depths, complementing the existing system used in deeper waters. These acquisitions will provide important new shared-use capability for marine scientists using R/V Pelican in their research during 2007 and future years.